George Mason University request for High Performance Connection to the vBNS

This award is made under the high performance connections portion of ANIR's "Connections to the Internet" announcement, NSF 98-102. It provides authorization for George Mason University to access the vBNS network as a vBNS Authorized Institution (vAI). Applications include distributed simulation, data mining, collaborative Virtual Reality, and distance learning. Collaborating institutions include the Naval Postgraduate School, University of Central Florida, and satellite campuses within the George Mason University network.